The Topology of Manifolds of Dimensions 3 and 4

Abstract
Award: DMS 0229035
Principal Investigator: Cameron Gordon

The project is a conference in 3- and 4-dimensional topology.
Satisfactory accounts of manifolds of dimension greater than or equal
to 5 were achieved by the late 1960's. Since then, attention has
naturally focused on dimensions 3 and 4. Despite dramatic advances
(Thurston, Freedman, Donaldson, Jones, Witten...), many major problems
in these low dimensions remain unsolved, for example the classical
3-dimensional Poincare Conjecture and its smooth 4-dimensional analog.
The topological classification of 1-connected 4-manifolds was achieved
by Freedman in the early 1980's, but in the smooth case there is not
even a conjectural picture. By contrast, Thurston's Geometrization
Conjecture provides a beautiful and coherent description of all
3-manifolds, but is far from established. In the mid 1980's, Jones'
discovery of his polynomial link invariant, together with work of
Witten, led to the introduction into 3-dimensional topology of methods
from quantum physics. The current situation in low-dimensional
topology is that there are many different directions and methods, but
little understanding of the relations between them. Thus in dimension
3 we have hyperbolic geometry, foliations and laminations, normal
surfaces, combinatorial geometric methods, quantum invariants, finite
type invariants, Floer homology,..., while in dimension 4 there are
the Donaldson and Seiberg-Witten theories, symplectic structures,....
The aim of the conference is to address these topics, and the
connections between them, and to provide a forum for interaction and
exchange of ideas between experts in the different areas.

Geometric topology aims to understand n-dimensional manifolds, which
are objects that locally look like ordinary n-dimensional Euclidean
space (whose points are described by n co-ordinates), but whose global
structure might be quite complicated. The cases of dimensions 3 and 4
are particularly interesting, being the dimensions of our spatial and
spatial-temporal universes, and it is a striking fact that it is
precisely these dimensions that are mathematically anomalous. There
have been many developments and considerable progress in the fields of
3- and 4-dimensional topology over the last twenty-five years, but, in
both dimensions, a complete picture is still lacking. One of the aims
of the conference is to encourage interaction and collaboration
between experts in the several different aspects and techniques that
are currently being pursued in low-dimensional topology, and in
particular between those people working in dimension 3 and those in
dimension 4, where the methods in the two areas tend to be quite
different, but where there are several hints of connections between
them. The current disparate state of the subject makes it difficult
for people beginning research in low-dimensional topology to get a
good overview of the area, and so by encouraging the participation of
graduate students and postdoctoral researchers, we intend that the
conference should also provide an opportunity for young researchers to
get a broad perspective of the present state of knowledge, directions
begin pursued, and the main open problems. The invited speakers
include some of the world's leading 3- and 4-dimensional topologists,
whose expertise together covers all the major aspects of the two
fields.